Affective Bases of Person Perception

This research is focused on the effects of nonconscious affective arousal on the perception of others. It seeks to understand the impact of affective states that have been induced outside of the perceiver's awareness on the perceiver's processes of social judgment. The work promises to provide considerable information on important noncognitive factors that affect cognition. The research has important implications for both social and cognitive psychology, and promises to help integrate these two important fields of research, and to suggest important methodological innovations to be employed by both groups. In addition, the findings are of interest and importance in their own right. The results will help to clarify and identify the factors that impinge upon important social/cognitive processes.